Technology, Engineering, and Mathematic Scholarships (TEAMS Project)

This program provides scholarships to talented, low-income students pursuing careers or transfer associate degrees in computer science, computer information systems, engineering, or mathematics. Special consideration for scholarships is given to women, ethnic and racial minorities and persons with disabilities. Students in the program receive individualized support, peer mentoring, and opportunities for field trips and internships with local employers. The scholarship recipients are required to take 2-credit Special Topics course in Engineering, Mathematic, and Computer Technology, which encourages group discussion and interaction, and focuses on problem solving activities. The College has well-established transfer agreements with 4-year colleges throughout Washington and graduates have many opportunities for high-paying employment with local industries. Strong collaboration with the local business and industry is a critical component of this program.